RUI: Active-Site Heterogeneity in Subunits of Limulus Hemocyanin

Hemocyanins are large, oligomeric proteins containing binuclear copper centers were oxygen is reversibly bound. The binuclear copper center is not unique to hemocyanins but is present in a variety of proteins that perform many important biological functions. Hemocyanins, however, may be considered as prototypes of this general class of metalloproteins. The large size of the native hemocyanins and the existence of subunit diversity have hindered researchers in their attempts to unravel the structural basis for the disparity in chemical reactivity and spectral properties exhibited by the binuclear copper centers of hemocyanins of different species. Two subunits, designated IIIA and IV, of Limulus hemocyanin show differences in chemical reactivity similar to those that exist between the hemocyanins of different species. The small size and single binuclear copper center of these subunits should greatly facilitate the structural interpretation of chemical, spectral, and electrochemical studies. The two Limulus subunits and proteolytic fragments of these containing intact binuclear copper centers will be studied using chemical probes coupled with ESR spectroscopy, NMR spectroscopy, and electrochemical techniques in an attempt to unravel the basis of the disparity in chemical reactivity and spectral properties of the binuclear copper centers of the hemocyanins of different species.